Thermomechanical Modeling of Engineering Surfaces in Sliding Contact

0084632
Soom
In modern engineering practice, systems and components that rely on
frictional response are ubiquitous. Clutches, brakes and rubbing seals
are well known examples from mechanical engineering. Despite the apparent
simplicity of the sliding contact problem, its economic importance, and
the efforts that have been devoted to research on this topic recent
decades, a detailed physical understanding of many aspects of behavior
remains elusive, particularly those associated with thermal effects. In
this project, supported under the initiative on Exploratory Research on Model Based Simulation, we will develop a computational mechanics approach to
modeling these problems based on a multi-level boundary element method
which can be scaled up to solve large problems. An unsteady
three-dimensional thermomechanical formulation that includes surface
texture and near-surface nonlinearities will be implemented. A speed
or temperature dependent friction will be employed. The computational
methods, while fully three-dimensional in nature, will initially be
applied to a series of rotating ring geometries that will be studied in a
parallel program of physical experiments. The experiments will be
compared with computational results based on full field deformation
analysis of a stationary ring or disc under both constant and unsteady
sliding conditions.
***